Mathematical Sciences: Computing Research Environments

9404644 Savits The Statistics Group with in the Department of Mathematics and Statistics at the University of Pittsburgh will purchase computer equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used fir several research projects, including in particular the research of: 1.) H. Block and A. Sampson on isotonic regression and degradation processes; 2.) H. Block and T. Savits on reliability and burn-in; 3.) D. Stoffer on categorical time series; 4.) S. Iyengar and T. Savits on applied stochastic modelling; and 5.) M. Brimacombe and L. Gleser on nonlinear inference.